Submersible Magnetometer Investigation of Easter Microplate Rotation and Deformation

The PI will test microplate in the Pito Deep area of the Easter Microplate using a submersible-mounted magnetic gradiometer during a French Nautile expedition to the area in late 1992. The results should make an important contribution towards resolving the relative importance of deformation and rigid-plate rotation in microplate tectonics.